MRI: Acquisition of a Confocal Laser Scanning Microscope for Research and Training in the Natural Sciences at California State University, Long Beach

An award has been made to California State University-Long Beach under the direction of Dr. Bruno Pernet for the acquisition of a laser scanning confocal microscope for research and teaching. The new microscope will support studies of cells and their internal structures at a finer resolution than currently possible. The microscope will support a dozen faculty members in biology, chemistry, and psychology, including several newly hired faculty. Research that will benefit includes studies of growth and development of fungal and mammalian cells, development of grass plants, gene expression in muscle cells, and neural structure and function in birds. The institution has a large Hispanic population, who can be expected to participate in research projects and to benefit from the instrument in their classes. Graduate students will use the instrument in their Masters Degree research.